Fundamental Experiments in Finite Plasticity

The research aims to develop a definition of plastic strain for finite deformations. A set of multiaxial experiments will be conducted at large deformations to come out with a satisfactory prescription of plastic strain. The experiments will test the validity of a recently proposed, new, prescription of finite plastic strain.